Scholarships for Students in Engineering, Engineering Technology, Mathematics and Computer Science Programs

This project provides 40 scholarships per year for two years to enhance opportunities for academically gifted, low-income students enrolled in the Electrical Engineering, Computer Engineering, Mechanical Engineering, Mathematics, Computer Science, Electronic Engineering Technology, and Manufacturing Engineering Technology majors at Minnesota State University, Mankato. The NSF Scholars Program targets students at the junior and senior years. Student support infrastructure includes the TRIO Program, an extensive bridging program with five community colleges, and mentoring.